The Role of Fe(0) and its Corrosion Products in the Degradation of Disinfection By-Products

0332085 Hozalski The main goal of the proposed research is to determine the abiotic degradation pathways and kinetics for regulated (i.e. THMs and HAAs) and unregulated or iremergingle DBPs (e.g., haloacetonitriles, halonitromethanes, and haloketones) upon their reaction with iron metal, synthetic iron oxides, and pipe corrosion products obtained from full-scale distribution systems. The specific objectives are to:
1) determine the kinetics and pathways of the degradation of DBPs in the presence of Fe(0) and Fe(0) corrosion products,
2) evaluate the effects of dissolved oxygen and chlorine on DBP degradation
rates in the presence of Fe(0) and Fe(0) corrosion products, and 3) determine the kinetics and pathways of the degradation of DBPs in the presence of pipe solids and in pipe sections collected from full-scale water distribution systems.